SBIR Phase I: Development of Web-Based Modularized ERP Software System for Manufacturing-Related Companies

This Small Business Innovation Research (SBIR) Phase I project will apply agile manufacturing, and lean production concepts in studying the real time workflow patterns at plant level in a manufacturing-related company. The results will be used to develop a new generation ERP (enterprise resource planning) software system. This project will develop a web-based modularized software for upper/middle levels and as well as shop-floor-level production planning, execution, monitoring, and evaluation using agile manufacturing and lean production principles.

The commercial application will be directed toward the U.S. Manufacturing industry. This new ERP system will provide rapid and quality responses to plant-level production needs of manufacturers.